Establishing a Bioscience Alliance of the Midwest Region

This project is forming a consortium of community college programs and their industry partners focusing on biotechnology in the Midwest region. An initial planning meeting was held in September 2009 to assess the need for and interest in such a consortium. That meeting indicated there was a need for such a consortium in the Midwest. Some of the goals that came from that meeting include the desire to hold workshops and business meetings, the desire to look at how best to partner with industry and high schools, the need for clear career paths in bioscience for the diverse Midwest region, and the need for a location for students to present their work. The project is developing additional partnerships with other colleges and their industrial partners, as well as state and local life sciences groups. In addition, the goals and objectives of a Midwest region consortium are being solidified.

INTELLECTUAL MERIT The main intellectual merit of this project is the opportunity to share knowledge that will come from a planned Midwest Region Consortium. In the Midwest, there are a diversity of program specialties, from biomanufacturing and lab skill programs to medical device and bioprocessing programs. With the development of regional partnerships comes the enhanced opportunity to share instructional materials, teaching skills and learning opportunities among the partners.

BROADER IMPACTS There are two main outcomes of this grant: best practices for partnerships between educational institutions and industry partners, as well as a solidified plan for a Midwest Region consortium of biotechnology related community college educators together with their high school and industry partners. Partnerships such as these allow industry to influence the education of their future workforce, thereby having better-educated new employees. Educators are better able to meet the needs of their communities through strong partnerships with local industry. In addition, high school students and teachers may not be fully aware of the positions available, so that students may not be prepared for jobs in this growing industry. A center can address all of these needs.